Quantitative Flow Visualization and Modelling of Surf Zone Circulation and Sediment Transport

Research to be carried out under a Research Initiation Award is focused on mean flow and wave motion in the coastal surf zone. The study will be mostly experimental, utilizing a laboratory wave flume. Experimental results will be integrated into an already developed model for the prediction of sediment transport. Video imaging of dyed flow tracers and fluorescent dyed sand grains will yield qualitative and quantitative details of flow and sediment dynamics with wave shoaling and breaking included. The research will advance the ability to predict beach response to storms, and evaluate protective system.